SHF: Small: Scalable and Maximal Predictive Runtime Verification for Concurrent Software

The increasingly widespread use of multicore processors, whose computing power
can only be unleashed by concurrent software, makes software defects, or bugs,
become more common and labor-intensive to detect and repair. Runtime verification
is a novel analysis approach that extracts information from a running system and
uses it to detect and possibly react to observed behaviors satisfying or violating
certain properties. Runtime verification scales well and avoids the complexity of
traditional formal verification techniques. The techniques developed in this project
will lead to robust production quality software by providing a scalable alternative
to formal verification that provides many of the same guarantees for safety and security.

This project aims to develop a scalable predictive runtime verification framework
for concurrent software. A major technical advancement over prior art is that it
not only detects errors when they occur at runtime, but is able to predict general
security and safety property violations before they actually surface, preventing
bad behaviors from happening by taking proper actions defined by the users. This
project builds upon a sound and maximal causal model, hereby providing the provably
maximum possible prediction power on the observed trace with no false alarms. The
core research insight of this work is to explore the maximal causality of concurrency
with automated constraint solving, which has been studied for decades and is becoming
increasingly powerful.